Heat Kernel Analysis on Lie Groups

Abstract
Mitchell

This project concerns the study of heat kernel analysis on Lie groups and its dependence on the geometry of the group. This is motivated
by the philosophy that the heat kernel on a Riemannian manifold is the natural analog of the Gaussian on Euclidean space. The techniques
involved draw from the fields of functional analysis, Lie theory, differential geometry, and probability theory. A primary goal of the project is to
examine the recently developed notion of "Hermite" functions on Lie groups; Hermite functions are analogs of the classical Hermite
polynomials. Just as the classical Hermite polynomials are basic objects in harmonic analysis on Euclidean space with respect to a
Gaussian measure, Hermite functions are fundamental in harmonic analysis on Lie groups with respect to the heat kernel measure. The
principal investigator will examine these Hermite functions, their relationship to questions in harmonic analysis and representation theory, and
properties of transforms relating function spaces on Lie groups to other Hilbert spaces. Specifically, the principal investigator proposes to
extend his recent work by characterizing the asymptotic behavior of Hermite functions, investigating their image under the Segal-Bargmann-
Hall Transform, and relating the Hermite functions on compact Lie groups and their complexifications to the unitary representations of these
groups. Additionally, a goal is to develop a parallel theory for general noncompact Lie groups and to investigate the possibility of generalizing
the classical Fourier-Wiener Transform to the group setting. Finally, the principal investigator will study the extension of the above
considerations to include the infinite dimensional groups consisting of continuous paths into a finite dimensional Lie group.

This research is motivated by mathematical problems stemming from quantum physics. In particular, this project has grown out of work
related to quantum field theories. Physicists use quantum field theories to predict the behavior of the elementary particles. However, these
theories are in a mathematically primitive state. This project will illuminate mathematical structures associated to these quantum field
theories. As a consequence, the results may have an impact on developing rigorous physical theories of the subatomic particles.